A Nationally Distributed Planetarium Star Program and Chart on Cosmic Catastrophes

The Hansen Planetarium proposes the creation, writing, and production of a 50-minute star theatre program, Cosmic Catastrophes: A Planet At Risk?, aimed at informally educating over a million individuals regarding the vulnerability of our Earth. The further production of four interactive exhibits is planned to accompany the program. This program will be marketed and distributed at a nominal charge to 250 national planetariums, with 50 additional production packets planned for loan. In this fashion, top-quality, accurate, and timely science education can be guaranteed to a large selection of audiences. Scientific research tells us that catastrophes of global and interplanetary proportions have happened in the past, there is evidence that they could occur in the present, and they pose an imminent danger in the future. The utilization of expert consultants, in conjunction with Hansen Planetarium staff, will insure this program presents the most current information available about these cosmic catastrophes. Its interactive format is designed to stimulate a proactive approach to problem solution on the part of the audience, especially in reference to ecological or environmental issues. The star show format, with its dynamic special effects, will make scientific theories surrounding cosmic catastrophes accessible and excitiong.